Relative Stabilities of Organic Aqueous Species in Geochemical Processes

This research project in theoretical organic geochemistry will address problems of critical importance to the understanding of the chemical transformations which organic compounds undergo in geochemical processes. Research objectives include calculation of relative stabilities and activities of organic aqueous species as functions of temperature, pressure, fugacities of various gases (O2, CO2, CH4, NH3, etc.) and activities of inorganic aqueous species, estimation of thermodynamic data and equation of state parameters for organic aqueous species, prediction of pKa values for organic acids and bases at high temperatures and pressures, and estimation of activity coefficients for aqueous species in electrolyte solutions. The focus of this research will be on the conditions of diagenesis with the goals of enhancing understanding of the observed distribution of organic aqueous species in sedimentary basin solutions, identifying plausible chemical reactions between these species, organic matter (kerogen and petroleum) and minerals, and predicting which organic aqueous species should be found in future extended searches of natural solutions. This research requires an interdisciplinary approach combining theoretical equations, thermodynamic data, computer techniques, and field and laboratory observations to achieve these goals.